Support for Committee on Scholarly Communication with China

This award supports activities of the Committee on Scholarly Communication with China which are intended to assist U.S. researchers in stimulating and guiding collaboration with China. This award will support two issues of China Exchange News, a quarterly publication which covers scientific and scholarly interaction between the US and China; and a revision and reissue of China Bound, a guide for researchers who are planning to work in China. Partial support for a multi-year index to China Exchange News is also included.